Theoretical Nuclear Physics

The proposal is for theoretical studies of heavy ion collisions for energies from medium to ultrarelativistic. The primary goal is to investigate hadronic matter as a function of excitation energy and density. Non-equilibrium processes are discussed in the frame work of the Fokker-Planck equation.